Workshop: Funding for 1000 Islands Energy Research Forum 2010, Nov 12-14, 2010, Alexandria Bay, NY

This award will provide partial support for the 1000 Islands Energy Research Forum (TIERF) conference to be held on Nov 12-14, 2010 in Alexandria Bay, NY.

Intellectual Merit

The TIERF meeting is Canadian-US collaborative activity of the Great Lakes Sustainable Energy Consortium (GLSEC), a group of academic and industry partners serving to foster technical research, public policy options, and commercial developments in sustainable energy strategies on both sides of the border in the Great Lakes region of Ontario, Canada and New York, USA.

Broader Impacts

The TIERF provides a venue for graduate students to present their research results to their peers and seasoned academic researchers, to create cross border relations, and to interact with industry representatives.